Design Methods for High-Performance Sensor Networks

Wolf Abstract

This research is developing new methods for the design of high-performance sensor networks
that perform significant amounts of computation within the sensor network. High-
bandwidth signal processing applications, such as distributed audio or video processing, are becoming
increasingly common, and performing large amounts of processing in the distributed
system that implements the sensor network poses new design challenges. On the
one hand, high-performance sensor networks are like distributed embedded systems, which need
to be optimized to the application in order to minimize power consumption and cost and
maximize performance; on the other hand, they are like ad-hoc networks that need to be
able to be operate in a number of different configurations without radically increasing the
cost of operating the network. New design methodologies and tools are needed that can
create a resilient architecture that still takes advantage of application-specific
characteristics. Traditional algorithms and methodologies for designing distributed
embedded systems can handle some of the aspects of sensor networks, namely distributed
computation and the effects of communication delay, but their purpose is to select a
single good design. They provide no guarantees that any changes in the system
parameters (number of nodes, communication, power budget) will result in a system
that operates anywhere close to optimality.

With the proper choice of nodes and links, and the right topology and
communication patterns within the high-performance sensor network, the cost/power/performance
of the network can be substantially improved. A
combination of design-time and run-time decisions is required for the successful design
and deployment of high-performance sensor networks because certain characteristics
of the system will not be known until run time,
and those characteristics may change during operation of the network. Furthermore, the
configuration of the network may not be known at design time. The overall
hardware and software architecture of the network must be designed to operate well not
just at a single design point, but across a range of possible configurations and operating
decisions. This research seeks to balance the needs for optimizing the design and adapting its
operation at run time by developing new design methods that find pareto-optimal regions
in the design space. Pareto-optimality has been used to design small-scale embedded
systems, but this work improves on previous efforts in several ways: handling larger
systems, lower-variance design; analysis of run-time behavior; and inclusion of Monte-
Carlo methods.

Broader impacts: The methods developed in the research will directly enable
systems for security and a variety of industrial applications. High-performance audio and
video are especially important in security applications and distributed real-time
processing of data will help to create security systems that can identify problems more
quickly. Design tools, benchmark data, and lecture materials on distributed embedded systems
will be distributed over the web.